RUI: Undergraduate Biomathematical Research Career Initiative at SUNY-Geneseo

The Undergraduate Biomathematical Research Career Initiative
at SUNY Geneseo is a research-based program that combines new and
revised problem-based curricular components (e.g., calculus for
biologists, modeling biological systems, biological data
analysis, discrete mathematics, graph theory, probability,
statistics and computational molecular analysis) with research
activities (ranging from biomolecular computing to
individual-based, evolutionary modeling of food webs) that push
the boundaries of modern techniques in understanding complex
problems. Undergraduate students participate in this training
program as they blend new classroom-based studies with research
projects at the frontier of biomathematics. Jointly-mentored
biomathematical research projects are at the core of the program
and these research projects serve as a stimulus for faculty
development and curricular innovation. The opportunity to
directly participate in these research projects serves as an
incentive for students and faculty in the research areas of
biomathematics

The Undergraduate Biomathematical Research Career Initiative
at SUNY Geneseo supports a program at Geneseo that brings the
continuing commitment of sixteen students in two related projects
and institutes broad, integrated curricular improvement in the
area of biomathematics. The project builds upon the current
strengths of the undergraduate program at Geneseo and the
expertise of the four co-PI's. It increases the number of
students trained in mathematics and biology, and it increases the
number of students and faculty performing research at the
intersection of the two fields. It increases the visibility of
biomathematics research at Geneseo and promotes undergraduate
biomathematics research in the western New York region and
nationally. This project is jointly supported by the Division of
Undergraduate Education/EHP, the Biology directorate, and the
Office of Multidisciplinary Activities/MPS.